Transition Pool Boiling Heat Transfer Mechanisms on a Strip Heater Using Microscale Heater Arrays

This award is to study experimentally the local heat transfer coefficients during transitional boiling using independently controlled heaters. Most of the existing data are for average coefficients over relatively large surfaces. This work will utilize an array of microscale heaters, each smaller than the average bubble size, to control local heating and to measure local coefficients. By pinpointing when and where in the vapor departure cycle large amounts of heat are removed from the wall and correlating this information to visual observations of the state of the fluid at those times, information about the important heat transfer mechanisms during transitional boiling will be obtained. This information can also lead to an improved understanding of the critical heat flux. Additional data will be obtained regarding wall void fraction, liquid contact duration, and the distribution of liquid contact will be secured. The experimental technique is expected to be applicable to spray cooling, impingement cooling, and particle impingement heat transfer.